Radiative Transport Theory for Waves

The investigator studies problems of wave propagation in
complex media, using both analytical and numerical techniques.
Long range propagation of seismic and other waves in domains that
involve both external boundaries and sharp interfaces between
random media with different characteristics are studied. The
correct boundary and interface conditions are analyzed from first
principles (wave equations) for smooth and random interfaces.
They are used to derive the interface conditions in the diffusion
approximation that is more tractable for numerical simulations.
Analytical and numerical methods for the analysis of the matrix
valued radiative transport equations for polarized waves are
developed. Effects of inhomogeneous turbulent flows on acoustic
wave propagation and in some other problems (front propagation in
combustion problems) are also addressed.
Wave propagation is one of the most fundamental physical
processes. Many physical applications require consideration of
waves in highly inhomogeneous media. These include such basic
phenomena as acoustic wave propagation in the atmosphere, seismic
waves in the Earth, and many others. Direct application of wave
equations to such problems is beyond reach of even the fast
computers available today. The radiative transport theory is a
valuable approximation that describes energy propagation of waves
in complex media with rapid fluctuations of the material
properties. One of the most promising applications is in seismic
wave propagation, where this theory has been successfully applied
in the last ten years, in particular to model propagation of
disturbances caused by earthquakes.